Balanced Codes for VLSI Systems

This project deals with the properties and applications of balanced codes. In a balanced code, each code word contains equal number of 1's and O's. These codes find many applications in computer and communication systems such as noise reduction in VLSI systems, fault masking in bus lines of VLSI systems, delay insensitive communications in asynchronous systems, data transmission in fiber optics, data storage in optical discs and magnetic tapes, and fault tolerant synchronous circuits. The objective of this research is to develop design methods for balanced codes suitable to these applications. Our aim is to design codes which require low redundancy but at the same time have fast and simple encoding/decoding algorithms. Other topics such as error correcting balanced codes, asymmetric error correcting and detecting codes applicable to the above mentioned applications will also be investigated.